The Seasonal Cycle and the Business Cycle

This project analyzes the correlation between seasonal variations in macroeconomic variables and the business cycle. There is a set of stylized facts about macroeconomic variables that collectively constitute what is called the business cycle. These facts include the tendency of output movements across broadly defined sectors in the economy to move together. For example, there is an observed correlation between growth in the money supply and output. Labor productivity moves in a decidedly procyclical manner, as does volatility in production, and purchase of consumer durables. Professor Miron has shown that much of the variation in the above variables can be explained by seasonal fluctuation, and an important contribution of this project is the ammassing of empirical evidence that these fluctuations display the same kind of variation as the business cycle. There is no strong reason to believe that the seasonal cycle and the business cycle might behave in a similar fashion. Intuitively there seems to be no theoretical connection between sources of seasonal variation (such as weather) in output and the business cycle. However, previous empirical studies by Professor Miron have shown that a large percentage of variation in output can be explained by seasonality. This is a quite important finding in that variation due to seasonality is easily predicted. For example, there are likely to be fewer housing starts during the winter than in spring or summer. A connection between the business cycle and seasonal variation is very important because variation due to seasonal changes is virtually devoid of uncertainty, whereas models of the business cycle incorporate a high degree of uncertainty. A correlation between the two could be a valuable tool for making correct economic policy. Technically, Professor Miron examines several analytical paradigms which characterize business cycles. In one framework aggregate fluctuations are seen as collectively rational responses of producers and consumers to technological opportunities which vary across seasons. Another model analyzes seasonal fluctuations as coordination problems arising from synergies in the timing of economic activity across agents. Such phenomena as increasing returns to scale in the short run, externalities associated with imperfect competition, and other problems of timing in production and consumption might cause economic activity to be more volatile in some seasons than in others.